Incorporation of NMR-Based Investigational Experiments into the Chemistry Curriculum

Nuclear magnetic resonance spectroscopy is central to most strategies for solving structural problems and gathering thermodynamic and kinetic data in chemistry. The 60 MHz NMR spectrometer currently in use is the weak link in the Department of Chemistry's efforts to design and execute unique discovery-based activities in the laboratory. Thus, Lycoming College requests matching funds for the acquisition of a multinuclear Bruker Avance 250 MHz NMR spectrometer. Acquisition of the spectrometer will allow for the incorporation of multiweek investigational experiments which exploit NMR (as well as other complimentary spectroscopic techniques) in both core courses (Organic chemistry I and II, Inorganic Chemistry, and Physical Chemistry I and II) and advanced elective courses (Spectroscopy and Molecular Structure and Organometallic Chemistry). A modern NMR spectrometer will also significantly enhance the undergraduate research program the department offers within the context of both Independent Studies projects and the summer research experience.